National Symposium on the Great Plains Tornado Outbreak of May 3, 1999; Oklahoma City, Oklahoma; April 30-May 3, 2000

The extensive body of information collected during and after the May 3, 1999 outbreak of intense tornadoes affords an opportunity to study, for the first time in a single venue, all components of this significant natural disaster. The goals of the Symposium are to document the current state of knowledge in dealing with severe local storms, identify the successes and failures on May 3 in specific areas, specify challenges for the future, and determine how best to proceed as a unified community. The symposium is viewed as a mechanism for joining many traditionally separate communities and disciplines to provide a framework for their future interaction.